STTR Phase I: A novel dual paraboloid mirror device for enhanced light collection in confocal and fluorescence microscopy

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be to improve research in the life sciences. This research often uses confocal and fluorescence imaging technologies to capture high-resolution, high-contrast images of biological samples. However, these methods traditionally require high levels of illuminating light, resulting in damage to tissues, disruption of normal processes like cell division, and competing with the light being measured in the experiment. The proposed solution will improve the collection of light in these microscopes. This will allow researchers to minimize damage to samples, thus removing current experimental constraints and enabling the development of new and far-ranging applications on an already powerful research platform. The proposed technology will be useful for disease and pharmaceutical research.

The proposed project will involve the development of a simple, add-on, mirrored sample chamber unit capable of enhancing confocal microscopy capabilities by substantially increasing microscope fluorescence collection efficiency limits. This will require overcoming design challenges because the use of mirrors to collect and refocus emitted light has rarely been attempted in confocal microscopy. The proposed R&D work includes: 1) sample chamber and mirror design and prototyping, 2) design of mounting hardware and integration with an existing confocal system, and 3) exploration of compatible modalities, including Total Internal Reflection Fluorescence microscopy and Stochastic Optical Reconstruction Microscopy. Completion of the proposed objectives will lead to the development of a device that increases the light collection efficiency beyond the current 40% limit, is compatible with any detection objective, and does not require a separate optical path to the detector.